Continuous and Discrete Nonlocal Evolution Equations and Applications

9975451
Chmaj

This project concerns the dynamics of both spatially discrete and
continuous but non-local evolutionary systems. In particular, we are
concerned with the existence, stability, and variety of spatial patterns in
interacting and reacting systems which exhibit threshold behavior. Not
just stationary patterns but also those which evolve in a predictable way.
The systems of equations arise in the field of computational neural
networks designed to perform specialized tasks such as automatic image
recognition. They also arise in population dynamics, in models of phase
transitions, in models of the primary visual cortex of the brain, and in
computer simulation of a wide variety of continuum processes where
discretization is the standard approach. Results from the project will have
a direct impact on the understanding of computational experiments and on
the assumptions on which the mathematical models of many physical
phenomena rest.

From one perspective, the project explores some of the basic challenges of
present day material science: The modeling of processes which cause and
accompany change of phases or crystalline variants of a substance. New
mathematical models are being continually proposed, with the hope of
shedding insight into the basic physics of these processes. Successful
modeling can offer help in the development of new high performance
materials, which is vital to economic and other national interests. From
another perspective, the theoretical study of neural networks will lead to
the development of automatic pattern recognition, useful in such widely
diverse areas as text analysis, target identification, and image
enhancement.